MGR Honorable Mention: Marvin Jean Harris.

This special award will give Ph.D. student Marvin Jean Harris additional flexibility in pursuing her graduate studies and research initiation in cultural anthropology. This award will strengthen minority participation in research in this area.